Computer Applications to Enhance Inquiry-Oriented Laboratory Instruction in Biology at a 2-Year College

Computer Applications to Enhance Inquiry-Oriented Instruction in Biology The general problem of scientific-technical literacy as well as the enhancement of inquiry-oriented laboratory instruction in biology is addressed. Specific goals are to increase scientific literacy, reasoning skills, and the number of students succeeding in introductory biology courses. Also, these goals will be achieved by developing, evaluating and integrating into the curriculum a set of computer applications designed to reinforce biology concepts with laboratory activities. Efforts will be focused on an introductory biology course at a 2-year college that serves a nontraditional undergraduate population. Student populations will include more women, Hispanics, Native Americans and older students. The resultant inquiry-based model of laboratory instruction is also expected to be used as a model for computer technology in bio- science education.***//